Mass Media Science and Engineering Fellows Minority Recruitment Effort

The American Association for the Advancement of Science will establish a program of targeted recruitment and placement of outstanding black, Hispanic and Native American students into its Mass Media Science and Engineering Fellows Program. Over a four year period, a total of fifteen advanced students from the natural and social sciences and engineering will spend ten weeks during the summer working as reporters, researchers, or production assistants with mass media organizations. By the conclusion of the award, corporations and other private sources will be contributing the costs of stipends and recruitment and effective minority recruitment will be an ongoing part of the AAAS Mass Media Program. The AAAS and corporate donors will contribute more than $90,000 in stipends and support over the four year period.